Acquisition of a Solid-State Nuclear Magnetic Resonance Spectrometer

9802844 Zwangizer This award provides partial support for a new nuclear magnetic resonance spectrometer (NMR) optimized for solid state materials experiments, for use by the Department of Chemistry at Indiana University, Bloomington. In conjunction with the spectrometer, support is provided for the acquisition of a triple resonance cross-polarization Magic Angle Spinning NMR probe and a high power probe for wide line NMR. Indiana University has a vigorous and widely known program in solid-state and materials chemistry. The proposed instrument will complement and enhance this program by providing the laboratories in this area with experimental capabilities that are acutely needed but not currently available. Three areas of research are targeted in this proposal: development and study of new glasses and glass ceramics, and their aging and fatigue behavior; dynamics and reactivity of gases in molecular solids, in order to design and optimize chemical sensors; and structural and mechanistic studies of organometallic polymers and liquid crystals. In all three areas, solid-state NMR spectroscopy can provide essential information on the synthesis, structure and properties of the target materials. The proposed instrument has essential capabilities for study of the above materials, including: multi-channel heteronuclear operation, fast sample spinning, simultaneous proton/fluorine operation, and wide-line capabilities. None of these features are available in spectrometers currently in the department, but all are necessary to carry out the proposed research. Because solid-state NMR has become a powerful but still not widely used tool in materials science, experience in its use will be an important and unusual experience for the students and postdoctoral researchers. The instrument will immediately serve the needs of ten postdoctoral fellows, 16 graduate and three undergraduate students from the three major user groups and will be available to some 170 ad ditional graduate students and postdoctoral fellows of the Chemistry Department. A staff member of the departmental NMR facility, under the administration of the PI's, will train and help the users, oversee the use of the instrument, perform routine maintenance, instrument evaluation, and bookkeeping. %%% ***